Computer Research Equipment (Computer Science)

New Mexico State University will provide work stations and necessary peripheral equipment for research in the following areas: * Network Design * Software Redundancy * Software Engineering using Modcap * Object-Oriented Programming * Database Network Structures These are important areas, worthy of research support.